Optimal Load Bearing Characteristics of the Patellar Tendon in Below-Knee Amputees

The purpose of the study is to monitor forces which are transmitted by a prosthesis for below-knee amputations to the stump of the amputee, through the patellar tendon (PT); to evaluate undesirable freedom between the socket and the stump; to alter the share of the PT in the weight-bearing process by augmenting the portion of the socket which supports it; to determine the limits of force that can be applied to it; and to suggest modifications to the Patellar-Tendon-Bearing socket which will produce optimal force distribution, taking into account universal considerations and individual variables. A special biaxial force transducer will be developed to measure two force components acting on the PT during locomotion. Linear displacement gauges will monitor axial and perpendicular freedom of the stump-socket. Fifteen amputees will be selected to participate in laboratorial testing. Each amputee will be fitted with an experimental prosthesis and will take part in three experimental sessions. During the tests, systematic changes to the socket will be administered and the influence of the recorded variables (during locomotion) will be observed.